Conference: Joint MIGHTY LXVI and 52nd Miami University Annual Conference

The 66th meeting of MIGHTY (Midwest Graph Theory) and the 52nd Miami University Annual Mathematics Conference will be held jointly on the campus of Miami University in Oxford, Ohio on September 18 and 19, 2026. The topic of this joint meeting will be combinatorics and graph theory. The meeting will also feature the 51st Pi Mu Epsilon Student Conference, with contributed talks by undergraduate and graduate students. The conference aims to attract attendees from the Tri-state region (Ohio, Kentucky, Indiana) and beyond. Its principal goals are to expose students to advanced topics and current research in combinatorics and graph theory, to offer students the chance to present their own research, to foster collaboration among researchers, and to build community among participants from the region.

The invited speakers at this conference will be Dhruv Mubayi (University of Illinois Chicago) and Jozsef Balogh (University of Illinois Urbana-Champaign), both leading experts in combinatorics with close ties to Miami University. Participants will be invited to contribute talks scheduled in parallel sessions. The conference will also feature various social events aimed at stimulating interaction among students, early-career faculty, and more senior faculty. The conference website is at https://sites.bsu.edu/mighty/